An Assessment of U.S.-German Exchange Programs in MechanicalEngineering workshop to held March 1992 in New Orleans, Louisiana

Engineering colleges have developed a wide range of individual education and research exchange programs with institutions in Germany, some with support through such organizations as the von Humboldt Foundation and the DAAD, many with State support. There is a need to assess the status of the cooperative programs between U.S. and German institutions so that successful experiences and procedures can be shared. It is with these developments in mind that a workshop assessing the overall impact of U.S.-German cooperative programs in Mechanical Engineering is supported. There are multiple objectives for the workshop, including: (1) an evaluation of existing U.S./Germany cooperative programs in Mechanical Engineering; (2) an assessment of problems associated with developing a cooperative program; (3) the development of guidelines/procedures of the initiation of U.S./Germany cooperative programs, (4) the establishment of goals for increasing the number of cooperative programs with Germany; and, (5) the development of recommendations for the role that NSF could play in advancing international cooperation in Mechanical Engineering. Based on the evaluation of existing programs and associated problems, goals will be established for increasing the number of U.S./Germany cooperative programs and recommendations will be offered for the role that the USA may play in advancing international cooperation with Germany. A workshop report will be prepared.